ROW: Relationships Between Uplift and Exhumation: Geody- namics Modelling and Gravity in the Northwest Himalayas

This Research Planning Grant is to investigate the relationship between uplift and exhumation in the Northwest Himalayas, Fieldwork will consist of obtaining gravity data across the Nanga Parbat-Haramosh Massif of northern Pakistan. These data will be used in conjunction with mathematical models to investigate dynamically consistent controls on exhumation and pressure- temperature-time paths.